Mathematical Sciences: Combinatorial and Algebraic Geometry

This award supports the research of Professor B. Sturmfels to work on the interplay between combinatorics and algebraic geometry. He will study fiber polytopes, sparse elimination theory, intrinsic Grobner basis, the hard Lefschetz theorem, generalized hypergeometric functions and algorithms in geometric invariant theory. This research is on the boundary between the fields of algebraic geometry and combinatorics. These are among the oldest parts of modern mathematics. Algebraic Geometry originally treated figures defined in the plane by the simplest of equations, namely polynomials. Combinatorics attempts to find efficient methods to study how discrete collections of objects can be organized. The combination of these two fields has proved itself extremely useful in fields as diverse as physics, theoretical computer science, cryptography, coding theory and robotics.